Public Affairs Video Archives

Although the modern Congress is televised, recorded, and electronically indexed at Purdue University, many teachers do not know how to access this information. The Archives has developed and maintains finding aids, indexes, and an electronic database making this unparalleled collection available for use by faculty, students, and researchers. We will train teachers to use these modern research methods and show them how to incorporate these new research skills to improve their undergraduate teaching.